Proposal for Supporting the 18th International Workshop on Principles of Diagnisis (DX'07)

This award enables graduate student participation and the inclusion of invited speakers in the 18th International Workshop on Principles of Diagnosis (DX'07), Nashville, Tennessee. The workshop is an annual event focused on theories, principles, and computational techniques for diagnosis, monitoring, testing, reconfiguration, fault-adaptive control, and repair of complex systems, as well as applications to industry-related problems. NSF funding amplifies the educational impact of the meeting by enabling graduate students to participate actively in a scientific and technical forum that addresses an important facet of high-confidence, survivable systems.